The Mechanism of Deep-Focus Earthquakes: Laboratory Experiments, Seismic Studies, and Thermal and Mechanical Modeling CSEDI Workshop

9408527 Green The PIs will convene a workshop in February 1994 at Lake Arrowhead, CA, to bring together about 20 researchers from the different fields within geophysics that are studying the different aspects of deep-focus earthquakes. This workshop will be run as part of the CSEDI initiative, and may result in the submission of one or more collaborative interdisciplinary research proposals within that initiative. ****